Workstation Laboratory for New Undergraduate Curriculum in Massively Parallel Computing

This project is to implement a professional workstation laboratory for the new, interdisciplinary, undergraduate course sequence in massively parallel computing which is being introduced this year with support from the NSF ıCDR/CISE!. The laboratory will be equipped with advanced software tools on a network of high performance graphics workstations from which the students will access the University's massively parallel computer. The workstations have been choosen for their computational speed and 3D graphics capabilities. In addition to the basic software package, which includes C, C++, Pascal, FORTRAN, X11 and Motif, the PIs plan to provide Mathematica, Linda and ID to ensure a full spectrum of tools for a professional high performance computing environment. The workstations will be used to gain access to the CM-5 complex, for the visualization of Connection Machine computations and results, for program development, for data preparation and analysis, and for studying networked distributed computing models. The laboratory, which will be designed to serve as both a workspace and demonstration/teaching environment,is intended to reinforce the interdisciplinary nature of the curriculum by establishing a central location for the full range of interdepartmental undergraduate activity connected with the new curriculum. The PIs believe that this project will demonstrate the viability of incorporating frontier technologies into undergraduate education and serve as a prototype from which other educators can borrow.